Robust Numerical Methods in Polynomial Algebra with Approximate Data

This project aims at continuing development of reliable, accurate and
efficient numerical algorithms for approximate polynomial algebra,
along with implementations for expanding the capacity of a software
toolbox ApaTools. In addition to those robust algorithms/software
developed under previous NSF support, The PI proposes to design and
implement algorithms for three fundamental algebraic problems:
the approximate irreducible factorization of multivariate polynomials,
identification of the multiplicity structure, and numerical
elimination in solving polynomial systems.

This research is to be carried out in the intersection of computer
algebra and numerical analysis with an outcome consists of algorithms
and software packages for solving mathematical problems. The results
of this project are expected to supply critical tools for application
areas such as robotics, molecular conformation, chemical equilibrium,
automatic control, and other branches of mathematics such as algebraic
geometry.